Presidential Young Investigator Award: Visual Analyses of Multicomponent Immiscible Flow in Heterogeneous Porous Media

The objective of this project is to identify new technologies in image analysis and and computer graphics that may have applications for observing and evaluating fluid transport in porous media. This is the initial increment of support for research to be undertaken by this Presidential Young Investigator who has an interest in using visual analytical techniques for analyzing the transport of immiscible fluids through porous media as a step toward formulation of physical models that can be used to predict the rate of diffusion and dispersion of groundwater pollutants. The work involves use of digital image analysis techniques for analysis of microscopic transport processes, observation and quantification of small-scale variations in pore structure and fluid properties on macroscopic transport processes as steps toward obtaining a better understanding than now exists of the transport of immiscible fluids in porous media. This, in turn, is expected to have applicability in engineering design of systems for management of fluids that pose a threat to the quality of groundwater used for industrial, commercial and municipal purposes.